Experimental Kits on Ionizing Radiation for Students from Middle to Medical School

Martin This project seeks to make the subject of ionizing radiation accessible and understandable to students at levels from middle school to medical school through semi-quantitative laboratory experiences. The vehicle for doing this is a suspension of micro-droplets of a liquid, which are super heated at room temperature, in a gel. The energy carried by the ionizing radiation triggers bubble formation. The cavitation which initiates the bubble produces a "pop" which can be amplified enabling easy counting of the event. In Phase II experimental kits for each include vials of the suspension, electronic circuits and appropriate instructional materials.